Surface Raman Spectroscopic and Electrochemical Characterization of the Electrode-Electrolyte Interface

In this research project supported by the Analytical and Surface Chemistry Program, Professor Jeanne Pemberton of the University of Arizona will carry out studies of the electrode-electrolyte interface using surface Raman spectroscopic and electrochemical characterization methods. Studies will be carried out in-situ, on emersed electrodes, and on cryogenic models of the electrode-electrolyte interface. Information obtained from these studies is crucial to the molecular level understanding of electrochemical processes such as sensor technology, solar energy conversion, and corrosion inhibition. %%% Obtaining a detailed molecular level understanding of processes occurring at the electrochemical interface is the goal of this research project supported by the Analytical and Surface Chemistry Program. This information will be useful in the design of improved energy conversion devices, batteries, and corrosion inhibition strategies.